Undergraduate Laboratory in Experimental Psychology

This award will help fund the creation of a 12-station, computer- controlled laboratory for the teaching of labs in Psychobiology, Hearing, Vision, Human Information Processing, Statistics, and Research Methods in the Department of Psychology at Loyola University of Chicago. The twelve stations will be networked so that software can be shared among the stations and so each can access the University's mainframe computer and the library's on- line data base. All courses offered in the facility emphasize "hand-on" approaches to learning, with students required to participate in the running of experiments, graphic presentation of the data, and data analysis. The proposal seeks to expand and supplement the existing facility, which has been used for Lab in Psychobiology, Lab in Vision, and Lab in Hearing. Software will be acquired that turns each of the twelve computer stations into a fully-functional laboratory, with four of the stations equipped with measurement, signal-generation, and physiological recording equipment necessary for the two sensory labs and Lab in Psychobiology. The grantee institution is matching this NSF award with funds from non-Federal sources.